Exact Results in Model Statistical Systems

This award is supported by the Divisions of Materials Research, Physics, and Mathematical Sciences.

Intellectual merit: This project focuses on continued research on the exact study of the statistical
mechanics of model systems. The research concentrates on two areas:

1) critical percolation in two dimensions, an important and very extensively
studied model system, to which we are bringing new and unexpected approaches, and

2) the thermodynamics of the Farey fraction spin chain, a set of one
dimensional models with interesting phase transition behavior and connections to
multifractals, and dynamical systems.

This project aims at new results and insights in both these areas.
Research on the Farey models illuminates an interesting borderline case in the
theory of phase transitions and has inspired several publications in number theory.
The percolation research has already led to some surprising features, especially the
applicability of modular forms. Ongoing work aims at extending and deepening
these connections.

An important feature of the research is the relation to pure mathematics,
including close collaboration with mathematicians. This has already led to some
new developments in number theory in both areas mentioned, and to synergistic
developments, where the number theory provides new tools to gain insight into
physical systems.

We employ a variety of theoretical methods including conformal field
theory, Monte Carlo simulations, mathematically exact solutions of model
statistical mechanical systems, and techniques from number theory. This research
extends and develops the PI's program of basic research in statistical mechanics in
two dimensions and related topics.

Broader impacts of this project include the synergy with number theory
already mentioned, training of graduate students in these research areas, and
impacts on the PI's teaching methods. There is also ongoing significant spinoff on
a very practical level, involving instrumentation for mass spectrometers (and
similar instruments). This has led, in particular, to the formation of Stillwater
Scientific Instruments, Inc. Our main role in this company exploits our familiarity
with conformal methods.

Non-technical Abstract:

In this research funded by the Divisions of Materials Research, Physics, and Mathematical Sciences, the study of the behavior of particles and small magnets moving on surfaces will be connected to the study of pure numbers. This connection between surface physics and pure mathematics provides a fertile area for the education of students and the discovery of unexpected mathematics and physics.